Operations and Coordination for X.400 in the U.S. Internet

9319890 Landweber This project provides for continuing the operation of the X.400 relay MTA for the Internet at the University of Wisconsin, and leading the transition to a stable X.400 service in the U.S. Internet. The project duration is 18 months. ***